The Geometry and Dynamics of Symplectic Manifolds

Abstract

Award: DMS-0905191
Principal Investigator: Dusa McDuff

Since a symplectic structure allows one to measure the areas of
two dimensional surfaces, it is natural that the two dimensional
submanifolds of a symplectic manifold are key elements of their
global structure. The choice of an auxiliary almost complex
structure J determines a specially interesting class of such
surfaces, namely those that are J-holomorphic. Using them it is
possible to build many interesting homology theories, such as
quantum cohomology or symplectic field theory. Recently very
intriguing connections have come to light concerning the relation
between the dynamical properties of the symplectomorphisms on a
space (in particular, how much symmetry the space has) and the
structure of its quantum homology ring. McDuff recently
discovered that if the space has a circle symmetry then it is
uniruled, which implies that for every choice of J there is a
J-holomorphic sphere though every point in the space. One of her
proposed projects will investigate such connections in more
depth. Another will investigate the structure of toric
manifolds, which are symplectic manifolds with maximal abelian
symmetric group. She also proposes a joint project with Schlenk
that will illuminate a very basic symplectic rigidity phenomenon.
This attempts to understand exactly when a four dimensional
symplectic ellipsoid can be squeezed inside a ball. This gives
rise to some very interesting number-theoretic questions, and
also indicates a connection between the combinatorics of
J-holomorphic curves in the blow up of the projective plane and
the numbers that appear as indices in embedded contact homology.

A space can have one of several fundamental geometric structures,
for example a way of measuring distance and angle (as in
Euclidean geometry) or a way of measuring the area of two
dimensional objects (as in symplectic geometry.) The structures
studied in symplectic geometry are important because they not
only underlie the equations of classical energy-conserving
systems such as the planetary system, but also appear as a vital
component of many of the modern theories in physics such as
string theory. This project aims to further our basic
understanding of symplectic spaces. One line of inquiry
concentrates on questions about the influence of structures in
the large (such as cohomology) on the dynamical properties of the
space, investigating for example the number and nature of the
points that are fixed under an arbitrary movement of the space.
Another line of inquiry investigates what one might think of as
the crystalline nature of small pieces of a symplectic space;
under pressure how do such small pieces fold so as to take up
less space? This second line of inquiry leads to some very
interesting questions in elementary number theory and
combinatorics, the first appearance in symplectic geometry of a
relation between these fields. These questions can be explained
to high school students, and so will provide an excellent way to
explain to young people something of what research mathematicians
do today and to stimulate their interest in the field.